Presidential Young Investigators Award

This research by a Presidential Young Investigator is focused on the application of a new and powerful measurement technique for turbulent flows to strengthen the linkage between experiments and numerical modeling in this area. The focus is on coherent, organized structures. The technique is particle imaging velocimetry, from which multi-point, multi-dimensional velocity field data can be extracted. Experimental information of this kind is badly needed to enable the development of more realistic models for complex turbulent flows involved in mixing and the separation of flow from boundaries.